Mathematical Sciences: Packing and Covering with Congruent Convex Bodies

DMS-9403615 Kuperberg, W. The proposed research is in the area of Discrete Geometry and involves the packing and covering of space with congruent replicas of a convex body. The PI will extend his work in two dimensions to dimension 3 and higher. Some of the PI's earlier work has been applied in Computational Geometry for creating geometric algorithms and estimating their computational complexity; the proposed work should be equally applicable. ??